Technology, Engineering, and Math Science (TEAMS)

This project is enhancing learning opportunities for low income, academically talented students by offering at least 74 scholarships over four academic years through a Technology, Engineering, and Math Science Scholars (TEAMS) Program. For TEAMS scholars, who are majoring in Mathematics/Pre-engineering, Computer Information Systems, Biology, Biotechnology, Chemistry, Physics, Aerospace Technology or Process Technology, the program is providing numerous career awareness activities and developing a learning community cohort with enhanced tutoring, mentoring and additional student support services. Enhanced partnerships with area institutions of higher education and with industry are helping to ensure increased transfer rates and employment opportunities for the scholars. Major goals of the program are to increase by 5% each year the number of students majoring in STEM disciplines through intensive recruiting at local high schools and via web-based media, to increase transfer rates and employment opportunities for TEAMS scholars, and to contribute to the K-20 educational pipeline for preparing a qualified workforce for regional high growth/high demand biotechnology and nanotechnology industries.